Design and Construction of Camera-Based Spectrometers and Polarimeters for Vision Research

In order to understand the possible functions of ultraviolet-(UV) and polarization-vision in animals, it is necessary to be able to view and measure these environmental parameters. Since we are functionally blind to these aspects of the photic environment, we must depend on instrumentation such as spectroradiometers and cameras for visualization. It is also necessary that we understand how these environmental parameters vary with time as many animals gain and lose these visual sensitivities with age. This project will provide two new instruments for the study of W and polarization vision. The first is a photographic camera-based spectroradiometer which will allow for unattended, long-term monitoring of the solar spectrum from 300 nm to 700 nm. The second is an imaging polarimeter based on modifications to a three-tube colour television camera. This camera is already being used for multispectral imaging in the visible and UV, and the addition of polarization imaging will greatly enhance its utility. The information gained using these instruments will greatly enhance our understanding of why animals have evolved UV and polarization visual capabilities. The imaging polarimeter will also determine the polarization c haracteristics of relevant visual targets, such as planktonic prey, for which UV information is available.